Third International Conference on Constitutive Laws for Engineering Materials; Tucson, Arizona; January 7-12, 1991

Partial support is provided for travel of participants to this international conference. Attendees will participate in making presentations and holding discussions on current and future research on engineering materials and their use in design and manufacturing.